Student Travel Support for Transducers 01, The 2001 International Conference on Solid-State Sensors and Actuators in Munich, Germany, June 10-14, 2001

The 2001 International Conference on Solid-State Sensors and Actuators represents an
important opportunity to capture a perspective on the current state of the art in microstructure
fabrication and the development of MicroElectroMechanical Systems. The 11th International
Conference on Solid-State Sensors and Actuators (Transducers '01) will be held in Munich,
Germany, from June 10-14, 2001.
Transducers is a biennial conference focusing on theory, design, fabrication, and
application of solid-state sensors, actuators, and microsystems. It is an interdisciplinary gathering
with participants from university, government, and industrial laboratories representing diverse
cross spectrum of fields: electrical engineering, mechanical engineering, materials science,
biomedical engineering, physics, biology, chemistry, and microelectronics.
We propose to partially sponsor travel for student authors of papers from North America
to this conference. These student authors have been selected from a very competitive pool of
abstract submissions, and represent the most talented young members of the MEMS community.
These students will travel to the conference to present their own work, and then spend the
remainder of the week attending presentations and discussions, gathering information on the
most important breakthrough technologies revealed at the conference. Much of the fabrication
and integration technology is of direct relevance to technologies and applications funded through
NSF Electronics and Controls Systems office. Each of these students will write a brief report
describing the important technologies they learned about at the conference, and these will be
gathered into a summary report to NSF highlighting new trends in this community, important
thrusts initiated by other countries, and areas where the US technological base holds advantages
or disadvantages.
The funding that we request will allow partial travel support for approximately 12 student
authors from various institutions in North America.